The Washington Center Calculus Dissemination Project

The Washington Center for Improving the Quality of Undergraduate Education, is augmenting and extending for another two years the work of its Washington Center Calculus Project. The goals for the project are to build sustainable institutional commitment to calculus reform efforts already initiated, to deepen understanding of assessment tools appropriate to some of the new pedagogies being used in teaching calculus, to increase the number of institutions using reform calculus curricula, and to document the dissemination model they are using for statewide calculus reform. This proposal broadens the scope of the work in which they are currently engaged, and focuses more upon sustaining and institutionalizing curricular reform, rather than initiating it, and upon developing and documenting assessment and dissemination methods appropriate to regional initiatives. Activities include assessment workshops, an Assessment Task Force with a seed grant program for assessment projects, curriculum workshops for faculty members, site visits, newsletters, and follow-up workshops.